SGER: Chemically-Speciated Aerosol Deposition to a Forest Canopy: Eddy-Correlation Measurements During the PROPHET Summer 2001 Study

A newly acquired aerosol mass spectrometer (AMS) will be deployed at the PROPHET (Program for Research on Oxidants: Photochemistry, Emissions, and Transport) site in Northern Michigan during the summer of 2001. The PI will attempt to measure deposition fluxes of individual species associated with aerosol particles. The size-segregated ambient aerosol composition will be measured at a fast rate, including the ions sulfate, nitrate, and ammonium. Fluxes will be determined using the eddy correlation method. This project is supported as a Small Grant for Exploratory Research (SGER) and is a collaboration with Aerodyne Research Inc., the manufacturers of the AMS instruments.